Strategies and Methods for the Chemical Synthesis of Alkaloids

Dr. John L. Wood of Baylor University will lead a research program focused on developing new ways to prepare complex molecules that are found in nature. In particular, this program aims to invent better chemical methods and strategies that can be used to build a family of rare, biologically active compounds called pyrroloiminoquinones (PIQs) and related indole-based molecules. More generally, the team creates new chemical “building blocks” and step-by-step recipes so chemists can assemble complicated molecules more quickly and with fewer steps. These improved methods will speed up the discovery of new medicines and useful chemical materials, reduce waste in laboratory production, and will provide training for the next generation of the STEM workforce. By enabling more efficient, reliable production of complex small molecules, the work contributes to advanced manufacturing by using innovative technologies to make safer, higher-performing products with fewer resources.

From a more technical perspective, this proposal describes a strategy-oriented total synthesis program built on recent success in the total synthesis of aleutianamine. Central objectives are: (1) develop convergent routes to atkamine, sanguinones A/B, and pelianthinarubins A/B using newly developed pyrroloquinone N,O-acetals and monoketals; (2) generalize these tactics across the PIQ family; and (3) establish quinone-ketal electrophiles (including formal [3+2] cycloadditions and ambident nucleophile couplings) as versatile intermediates for constructing densely functionalized heterocycles. Preliminary results include scalable access to tricyclic N,O-acetals, efficient preparation of α-aryl butenolide partners, successful diastereoselective fragment couplings, and promising use of Barton-type selenoimination and hypervalent-iodine oxidations. Method development will explore enantioenriched ketal formation, radical conjugate additions from amino-acid derivatives, and routes to penta-substituted indoles and fused polycycles, with an emphasis on mapping scope, limitations, and applicability to complex-molecule synthesis.